U.S.-Japan Cooperative Research: Theoretical Studies of B-Physics

This award supports the establishment of a two-year cooperative research project between two groups of theoretical physicists led by Benjamin Grinstein, Superconducting Super Collider Laboratory, Dallas, and Anthony Sanda, Nagoya University. In addition to Dr. Grinstein, six other U.S. scientists will participate in the project by visiting Japanese research facilities in Nagoya, Osaka, Hiroshima, and Tsukuba. The need for this project is underscored by worldwide interest in building e+e- B-factories, and the recognition that B-physics may also be competitively studied in hadron colliders. In particular there is need to determine which aspects of B-physics are best studied in electron-positron B-factories, and which in hadronic colliders. Central to this collaborative effrot are studies of CP-violation (both in B-meson and b-flavored baryons decays), extraction of elements of the Kobayashi-Maskawa mixing matrix, and the methods for computing the rates of rare decays of B- mesons. In addition, the recently developed techniques of the heavy quark Effective Theory must be incorporated into these studies. These difficult problems will be attacked by combining the varied approaches and expertise that this collaboration brings together.